Fabrication of Integrated Polymeric Microfluidic Systems

Whitesides
0004030

The principal objective in this work is to develop functional microfluidic devices based on PDMS and related materials. The strategic intent is to develop the simplest possible platform (meaning complete system, with components that accomplish sample introduction, preparation, separation, detection, disposal). We will fabricate integrated microanalytical systems using primarily poly(dimethylsiloxane) (PDMS) (and other organic polymers).

The work will require development of a number of subsystems and components. The objectives of this work will be both to accomplish the task of developing a flexible platform technology, and to demonstrate new concepts. More specifically, the work will include: i) establishing the capability of PDMS to make certain types of functions uniquely possible by virtue of its flexibility and low surface free energies, and ii) expanding the range of components available to designers of microfluidic systems. The focus will be on proteomics rather than geonimcs.

The PI will explore these ideas or components:

* Laminar flow and counterflow as the basis for separations, for patterning and dosing cells and proteins, and for in-channel fabrication.

* New types of functional components: on-chip equivalents of filters, dialysis chambers, magnetic sorters, ion exchange adsorbers and membranes, and centrifuges (with no moving parts).

* Components with moving parts: new types of components with moving parts, taking advantage of the ability of PDMS to flex to eliminate hinges and other complex features that are required when using silicon.

* Systems for separation and analysis of proteins that are amenable to chip-scale realization.